Instrumentation for Communications and Signal Processing Laboratory

California State University, Chico, will establish a communications and digital signal processing laboratory for undergraduate electrical engineering students. Major instruments to be purchased are two computer-based telephone branch exchanges, five microcomputers, three instruments for communication signal analysis (protocol analyzer, signal analyzer and high speed oscilloscope/digitizer), and four digital signal processing/analog interface boards. This equipment will be combined with existing basic laboratory instruments to provide a laboratory component for five undergraduate engineering courses. Digital communications and signal processing are rapidly growing technical areas; this project will provide students with the laboratory experience needed to prepare them for further study in graduate school or professional work in industry.